EMSW21-VIGRE: Vertical and Horizontal Integration of the Mathematical Sciences at the University of Washington

VERTICAL AND HORIZONTAL INTEGRATION
OF THE MATHEMATICAL SCIENCES
AT THE UNIVERSITY OF WASHINGTON

Abstract

The Departments of Applied Mathematics, Mathematics,
and Statistics at the University of Washington will build on
the successes and experiences of their current VIGRE grant
to create an integrated program that will attract and retain
talented US citizens and permanent residents into the
mathematical sciences at all levels. The horizontal
integration of the three departments will be extended to the
seven other universities in the region belonging to the
Pacific Institute of Mathematical Sciences (PIMS), providing
international opportunities of wide scope for our students
and postdocs. These three departments will attract more
talented undergraduates to the mathematical sciences by
encouraging them earlier, providing ample opportunities for
team research projects, and offering an integrated five-year
BS/MS program. The VIGRE graduate fellowships will support
students through the three critical transitions in graduate
school. Both undergraduates and graduate students will have
expanded internship opportunities. Training in mathematical
communication will be woven into the curriculum, and regular
workshops for graduate students on a wide range of
professional issues will be held. Finally, there will be
enhanced outreach efforts, using GK-12 grants and other
initiatives.

This grant will greatly enhance the training of the
next generation of mathematical scientists through
professional workshops for graduate students, travel support
for both graduate students and undergraduates to attend
conferences and meetings, exposure to world-class scientists
attending PIMS activities, and opportunities to interact
with the local K-12 communities. Our efforts will increase
the number of US citizens and permanent residents majoring
in the mathematical sciences, with special emphasis on women
and underrepresented groups.